Oregon State University/OCEANUS Ship Operations

This project provides funding under the Research Vessel Oceanus cooperative agreement to support oceanographic research missions. The oceanographic research vessels of the Academic Research Fleet (ARF), operated by the academic institutions within the University-National Oceanographic Laboratory System (UNOLS) framework are multi-use facilities used to expand knowledge of the ocean environment. The surface work of these ships is complemented by human-occupied, remotely operated, and autonomous undersea vehicles and sensors that provide vital tools to understand the oceans and their resources.

These seagoing research and educational facilities enable scientists and students to study natural phenomena and train future scientists while on board state-of-the-art oceanographic research vessels utilizing high-quality instrumentation. The ship operators will also conduct learning activities for students and the general public including hands-on demonstrations of marine science research guided by faculty, students and ship crew members.